Acquisition of Axial-Torsional Material Test System for Research and Teaching in Civil and Mechanical Engineering at Clarkson University

9512140 Penumadu This Academic Research Infrastructure (Acquisition) Award is made to partially fund the purchase of a combined axial force-torsion closed loop loading frame with appropriate electronic control interfaces. This testing apparatus will produce biaxial states of stress and will be used in four ongoing research projects involving clay soils, polycrystalline metals, electrical conduction in reinforced cement composites and cold region research. Graduate and undergraduate research students will be able to tremendously improve their research training with this equipment. ***